Geometric Theory of Sobolev Spaces

The goal of the proposal is to investigate various
problems in Geometric Analysis with the theory of Sobolev
spaces as a main tool. As the theory of Sobolev spaces has
an impressive range of applications, the proposal
does not focus on a narrow problematics but rather, it
addresses a number of problems from a broader range of areas in
Geometric Analysis. That includes study of:
(1) boundedness of maximal functions in Sobolev spaces;
(2) Sobolev extension domains;
(3) interplay between isoperimetric inequality, Sobolev inequality
and the truncation method in the vectorial case related to Korn's
inequality and the Sobolev inequality of Strauss;
(4) geometric properties of Sobolev mappings between domains in the
Euclidean space (this research is related to problems in nonlinear
elasticity);
(5) bi-Lipschitz embeddings of metric spaces;
(6) Lipschitz approximation of Sobolev mappings between manifolds,
polyhedra and metric spaces with connections to the topology of spaces.
(7) degree theory of mappings in Orlicz-Sobolev spaces in the case
in which the target space is a rational homology sphere;
(8) the Hardy space regularity of Jacobians of mappings between manifolds
with applications to the regularity questions in the calculus of
variations.

Theory of Sobolev spaces was one of the greatest discoveries in
the XXth century mathematics. This theory is the most important single
tool in studying nonlinear partial differential equations, both in its
theoretical aspects and numerical implementation.
Although the theory of Sobolev spaces has been created in the late
thirties,in recent years, there have been major breakthroughs in the theory, by
expanding the applications to new areas of pure mathematics
like analysis on metric spaces, geometric group theory or algebraic
topology as well as to areas in applied mathematics, like for example to non-convex
calculus of variations. The aim of the proposal is to continue this
investigation in its various aspects. The PI has intention to advise PhD
students on problems closely related to the proposal.